GIS/GPS Laboratory Exercises Using Workplace Data Sets

Houston Community College System is producing an instructor's guide and a package of GIS/GPS laboratory exercises using workplace data sets for the PC environment. These interactive laboratory exercises may be accessed on the HCCS World Wide Web site <http://www.hccs.cc.tx.us> and also on CD-ROM. Project materials incorporate interactive features with workplace data sets and objectives into the laboratory exercises. The laboratory exercises enhance available instructional resources based upon currently available curriculum guidelines. Six collaborating community colleges in six states have agreed to test the interactive exercises prior to the final external evaluation. After field testing, the CD-ROMs will be available for use by community colleges and four-year institutions.